Transforming Scientific Practices to Promote Students Interest and Motivation in the Life Sciences: A Teacher Leadership Development Intervention

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers, through research and development of innovative resources, models and tools. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This project will investigate the influence of a professional development intervention on the teaching and learning of content in the life sciences in the context of place, language, and culture. The research will enable teachers to develop lessons that will allow students to design solutions to problems of economic, cultural, and ecological importance to the state. It will build on the emergence of teacher leaders whose knowledge will extend beyond content in the life sciences to include strategies for helping students develop meaningful science identities, understand the cultural values of economic sustainability, and buy into the principles of environmental stewardship.

A mixed methods approach will be used to capture data from teachers and students through classroom observation protocols, interviews, focus groups, and student surveys. The end products will include a refined teacher leadership professional development model. The model will serve as a framework for developing teacher leaders while promoting learning for underrepresented students situated within the larger state context. Dissemination of the model will occur through an open source online platform, formal and informal presentations at national and international meetings and conferences, and publications in capacity-building STEM media outlets.